Research in Graph Algorithms and Combinatorial Optimization

This project focuses on design of efficient algorithms for combinatorial optimization problems. Many efficient parallel algorithms were obtained as a result of a deeper understanding of combinatorial structure of the problems, and therefore the emphasis of this research is to combine the work on improving the parallel/distributed complexity of the algorithms with the work on improving their sequential complexity. In particular, the research concentrates on finding efficient parallel deterministic algorithms for the class of problems related to bipartite matching and on finding efficient sequential algorithms for problems related to generalized flow and multicommodity flow. Another important part of this research is to develop techniques that allow transformation of efficient parallel algorithms into algorithms that are efficient in the context of distributed computation.